Growth, Dissociation, and Transport in Helium Nanoclusters

9876991
Kresin
This project involves the study of species entrained in large, ultracold helium clusters. Neutral ground state atoms with s-wave ground states will be prepared within the clusters by the photodissociation of embedded diatomic molecules. By studying the photodissociation fragments as they migrate toward and emerge from the surface, information will be obtained about the transport of neutral species through a droplet of a quantum fluid and about dissociation processes in such a medium. Additional spectroscopic studies and analysis of the phenomenon of cluster aggregation will also be carried out. The research is supported by the Divisions of Physics and Chemistry and the Office of Multidisciplinary Activities.